Dual-Wavelength Doppler Radar Studies of Thunderstorms

The objective of this work is the use of dual wavelength doppler radar to investigate the microphysical structure of thunderstorms forming over the Aericibo Observatory, particularly the dependence of reflectivity upon particle spectra and the evolution of the latter throughout the life history of the storm.